Quantitative Characterization of Bacterial Chemotaxis in Natural Microbial Processes

In response to chemical gradients, bacteria are able to direct their motion toward conditions favorable to their survival. The objectives of this project are: to quantitatively characterize this phenomenon, known as bacterial chemotaxis, within natural systems; to develop predictive capabilities through mathematical modeling; and to exploit chemotactic behavior technologically. By manipulating their chemotactic response through genetic engineering or adaptation, the migration of bacterial populations toward contaminated zones can be enhanced.